Analytical, topological and numerical methods in the study of long range behavior in dynamical systems and differential equations

Abstract
de la Llave

The main goal of this proposal is to devise methods that
allow to make predictions of the long term (or the long range)
behavior of dynamical systems or PDE. We plan to
develop a broad array of tools (invariant manifolds,
variational methods, numerical analysis) in such a way that they
can work together. We are particularly interested in applications
to instability in dynamical systems and to global behavior in elliptic
partial differential equations and in coupled networks.

Many of the laws of nature are formulated as local interactions.
One point in space and time affects only its close neighborhood.
It can happen that these local interactions cancel each other
out so that the global
effect is small and that the systems remain kind of unaffected or it can
happen that the local interactions reinforce each other and
lead to large scale effects. The two alternatives do
happen and they depend on very subtle effects (e.g. rather
deep and abstract number theory is the key to very measurable effects).
Even if the importance of the
has been recognized by applied mathematicians for centuries, it is
only very recently that a rich enough toolkit has been developed by many
start tackling it. Different people,
have been making different techniques to
work together, and they have started producing results.
As a witness to the interest, the PI of this
proposal has
been co-organizer of special semesters in CRM (Barcelona) Fall 2008
and Fields institute (Spring 2011).